Investigation of Volcanic Underplating in the Austral Islands

9417076 Mutter A marine geophysical/geological expedition is proposed to the Austral Islands to determine how the spatival and temporal emplacement of magmatic underplating relates to the volume and chemistry of the surface volcanism and the pressures, stresses, and temperatures in the crust.